Phase Transitions, Critical Phenomena and Non-Perturbative Methods in Field Theory

The research proposed includes: 1. Finite size scaling effects in dynamics, 2. Investigation of systems with random fields and other types of random interactions, 3. Optimization problems which involve random graphs and applications of spin-glass methods and 4. Research on localization properties of fractals and Monte Carlo simulations of a supersymmetric model.